Math/Physical Science Exploratorium

The Department of Mathematics, Physical and Computer Sciences is acquiring work stations, each including a 80486 based computer and data acquisition equipment. The laboratory is to be located in a specially configured room using the standard model of a science exploratorium and incorporating into it a strong mathematics component. This exploratorium permits the offering of some paired sections of physics and calculus where the emphasis is on the study of physical phenomena. The facility provides faculty the tools to present models and have students participate in making modifications thereto. When used as an open lab, it gives students an area in close proximity to mentors and the necessary equipment for their work on independent projects and assignments. The configuration of the room enables an instructor to see all displays from the front and provides each student with individual computer space and work space. Further, the exploratorium provides a place in which to demonstrate the on-going curriculum changes to full time department members and to the numerous adjunct faculty.